Accelerated Vonvergence and Structure Determination of the Backpropagation Neural Network

Neural nets can identify and learn correlative patterns between sets of input data and corresponding target values. The most widely used neural net architecture, the back- propagation net, loosely mimics the human learning process and "learns" to recognize patterns relating input and output variables. Such nets are trained by being repeatedly fed input data together with corresponding target outcomes. After a sufficient number of training iterations, the net learns to recognize patterns in the data and, effectively, creates an internal model of the process governing the data. The net can then use this internal model to make predictions for new input conditions. Supervised training of back-propagation neural networks is usually achieved through the solution of an appropriate optimization problem. Subsequently, training times are affected by the nonlinear programming algorithms used. The training algorithm that is often used is the delta rule, which is a steepest descent derivative and as such exhibits a linear rate of convergence around a local minimum. This results in very long training time, often on the order of hours or days for practical problems. In this project the PI plans to: (1) accelerate training of the back-propagation network using Newton type algorithms, (2) determine network structure through the use of the singular value decomposition of the analytic hessian, (3) use the concept of a Minimal Spanning Network to derive a network of linear elements that will provide a performance lower bound on the neural network, and (4) impose appropriate bounds (or constraints) on design variables to enhance convergence. He hopes that the results will significantly speed up the training of neural networks. The structure of both the analytic gradients and the analytic hessian will be exploited in an implementation of the back-propagation algorithm on parallel computers, resulting in further increases in speed up. With such speed up, it will be possible to tackle difficult industrially relevant problems in a reasonable time frame.